Production and deployment of environment-controlled enclosures for the Network of Robotic Echelle Spectrographs

A large number of planets around other stars ("exoplanets") are being discovered or will be discovered by space missions like Kepler and TESS. There is a shortage of ground-based instruments that can follow up on these discoveries and measure the properties of the exoplanets themselves. This significant bottleneck is being addressed by the construction of the Las Cumbres Observatory Global Telescope (LCOGT), a worldwide network of primarily 1-meter telescopes. The LCOGT project is active in education, operating an extensive program of student observing on their telescopes. Numerous students from high-school to university seniors are employed as interns. Designs developed for LCOGT are open-source, and science data are made available to the community.

This award will fund the construction of 6 identical environment-controlled enclosures for the LCOGT Network of Robotic Echelle Spectrographs (NRES), which is currently under construction with NSF funding. These thermal enclosures will ensure that the NRES reaches its original design requirement for radial velocity stability. Timely completion of NRES will enable follow-up observations of planetary system candidates as well as a wide range of science requiring high-resolution spectroscopy of relatively bright targets. Each spectrograph is coupled to two independently-targetable 1-meter robotic telescopes that function as a single, global instrument with flexible scheduling capabilities.